Rapid Pressure Solidification: An Alternative Method for Producing Amorphous Alloys

The objective of this research is to investigate a new technique for the production of amorphous alloys. This method is called Rapid Pressure Solidification (RPS). The process involves pressurizing the material in order to form a solid rather than the usual manner of cooling. The process will eliminate the sizing, compaction, and sintering required in the fabrication of engineering components from rapid temperature solidified powders. The research will be carried out in phases. In the first phase work will be directed at refining the existing RPS scheme by including pressure and temperature instrumentation, by seeking reproducibility of the current results, and by conducting a search for a low temperature alloy which will consistently show the effects of rapid pressurization. The second phase will consist of matching theory with the experimental results. Metallurgical kinetics, solid-solubility, and the thermodynamics of binary systems and the effects of high pressure on them will be investigated.